Gas Chromatography-Mass Spectrometry in the Undergraduate Curriculum

The University of Wisconsin-Eau Claire is purchasing a Gas Chromatography-Mass Spectrometry system for use in all levels of the chemistry curriculum. Students in two organic chemistry laboratory courses are using the instrument to identify components of synthetic mixtures. Students are also using the